ADVANCE Fellows Award: A Self-Organization Model For Surf Zone Megaripples

Abstract: This award provides funding for research to develop the capability to predict the occurrence, morphology and migration of natural megaripples in the nearshore (water depth < 8 m). In this region, complex combined flows and turbulence dominate the transport of sediment. Megaripples (with heights of up to 50 cm and lengths of 1-10 m) are ubiquitous, but they are poorly understood and are not accounted for in models of sediment transport, wave transformation, and nearshore circulation. The results of this study will help improve the prediction of beach changes and beach erosion. This ADVANCE award is intended to promote the career of a scientist who resigned from a previous job and moved due to family responsibilities. In addition, the PI will involve undergraduates in her research program and will provide an excellent role model for women in science.